"Experimental Particle Physics Research Program at the Columbia University Physics Department Nevis Laboratories"

9813383
Shaevitz
A broad program of research in elementary particle physics and an associated education and outreach program is proposed by a research group of the Columbia University Physics Department at Columbia's Nevis Laboratory. Their program includes: the ATLAS detector construction project, which will be at the energy frontier at CERN's Large Hadron Collider; the D0 collaboration that shared in the discovery of the top quark at the Fermilab proton-antiproton collider; the ZEUS collaboration that is investigating the form factors of nucleons using the electron-proton collider at the DESY laboratory in Hamburg, Germany; the NuTeV experiment at Fermilab, that explores the proton in a complementary way by using neutrinos; and the proposed MiniBoone experiment at Fermilab, that will better measure reported neutrino masses.